Doctoral Dissertation Research in Political Science

The economic sources of growth in an open economy are well understood. Modern growth and trade theory provide well accepted explanations of the economic factors essential to growth. What is not well understood, however, are the political, institutional, and behavioral preconditions for these well known economic factors to be produced in adequate and efficient combinations. This ambitious doctoral dissertation research undertakes a comparative study of the causes of economic growth in advanced industrial democracies. The principal thesis of the project is that economic growth is the outcome of a struggle over wages and investment among workers, government and management. Specifically, the research attempts to understand how governments and labor markets in advanced industrial democracies combine to produce distinct national patterns of adjustment or mal-adjustment to changing conditions in international markets. Using a game theoretic model a series of hypotheses will be tested across 18 industrial democracies over a thirty year period. When completed the project should advance our understanding of how different domestic political and institutional arrangements produce different levels and rates of economic growth across nations.